Interdisciplinary Development of Physiology Experiments, Demonstrations and Manual Using Macintosh Hypercard

9352014 McDonald We propose the purchase of MacPacq data acquisition systems for use in our Anatomy and Physiology courses. These systems will enable students to make physiological recordings and to produce lab guides using a cross-disciplinary approach. The lab recordings will include standard measurements, such as electrocardiograms and lung volumes, and demonstrations of muscle and nerve responses to electrical stimulation.The computers will be used not only to familiarize the students with basic physiology concepts, but also to instruct them in the manipulation, display and interpretation of scientific data. We plan a collaborative effort between the Biology students, Technical Illustration students and English Department staff in the production of lab guides for the equipment. These lab guides will be produced as Hypercard stacks that will allow the students to step through the processes of equipment set-up, data acquisition and reporting of results. Producing these lab guides as an on-screen manual, and utilizing the talents of students and faculty in several different departments represents an exciting innovation in the use of this type of equipment.The equipment and lab guides will be demonstrated at the Women's Math and Science Network, at a local Middle School and at the Missouri Community College Association annual meeting. ***